Too Small To See

Cornell University, through Main Street Science (the education program of its Nanobiotechnology Center), proposes to create a 3,500 sq. ft. traveling exhibition on nanoscale science and engineering in partnership with Sciencenter of Ithaca, New York.

Intellectual Merit: The exhibition will address two questions: How do we see things too small to see, and how do we make things too small to see? In sections titled Small, Smaller, Nano; Seeing Nano Structures; Making Nano Stuff; and Nano and Me, hands-on activities and experiences will present the tools, processes and applications of nanoscale science and engineering for children ages 8 to 13 and adults.

Broader Impact: This traveling exhibition is projected to reach some three million visitors in at least six sites as part of its national tour. It will then become a permanent exhibition at Sciencenter. Dissemination will be supported by a web site, take-home materials, a children's book and activities to carry out at home, along with links to formal education.